Structure And Shape Of Nuclei At High Angular Momentum

9804068
Saladin
The detector ICEBall2, developed for the implementation of internal conversion electron spectroscopy (ICES), will be used together with other suitable multi-detector arrays to conduct a number of crucial experiments to resolve important missing links in the understanding of high spin physics. The decay of superdeformed bands in some Nd isotopes and the investigation of the origin of recently proposed continuum electric monopole transitions are included among the experiments.